National Information Infrastructure and Virtual Environments: Collaboration and Outreach

9407777 DeFanti The CAVE is a virtual reality System which allows users to surround themselves with artificially generated reality. One of its unique features is the ability for a group of persons to immerse themselves at the same time. This makes the CAVE a natural for demonstrations. This project will choose, by peer review, around 40 science projects and will work with the chosen disciplinary scientists to translate their work into the CAVE environment. A CAVE system will be set up at SIGGRAPH (the foremost exhibition in high-end visualization equipment, software, and underlying research) to show the results of the project.